SBIR Phase I: Spectral photoionization detector (SPID): real-time, in situ detection and identification of volatile organic compounds using electron spectroscopy

This SBIR project proposes to develop a new technology for the detection and identification of volatile organic compounds (VOCs) using a portable instrument. Spectral photoionization detection technology will be used to identify VOCs based on their electron energy spectra. This is a useful application because existing photoionization detectors can not identify individual VOCs present in a gas stream.

The broader/commercial impact of the proposed project will be the ability to detect and identify individual VOCs in the atmosphere or at emission sources. This can be useful in atmospheric monitoring programs, hazardous materials management, control of fugitive emissions, etc. A cost-effective technology will be beneficial to society in maintaining ambient air quality, and in preventing hazardous conditions.